Conference on the Introductory Physics Course

A conference is being held at Rensselaer to bring together and discuss a variety of projects to revise and reform the introductory physics course. Included will be the principals from most of the major projects and a large number of interested participants.